A Regional Framework for Interconnectivity of Coastal Ocean Observing Systems

This project addresses the need for improved connectivity among coastal observing systems by creating a regional framework for enhanced communication and sharing of coastal observation capacities. Data will be made available to potential users via Internet. The work involves the following states: Alabama, Florida, Georgia, Louisiana, Mississippi, and South Carolina.
Specific project objectives are:
To conduct an inventory of southern regional marine laboratories to determine types of sustained observing systems in place or planned for the near term; information on accessibility data; mechanisms and infrastructure in place to share data; and special processing or modeling capabilities;
To identify those monitored parameters that are common to laboratories covering a broad geographical range, which can be used to develop a regional analysis and/or predicting capability;
To create a connective framework among these key labs by providing critical infrastructure and implementing data processing steps necessary for sharing or consolidating data;
To identify significant gaps in monitored parameters and connectivity infrastructure, and to provide the necessary infrastructure and data processing steps to create a connective framework;
To incorporate from the outset a dialogue with potential users of data (e.g., researchers, resource managers, climatologists, public health officials, ship operators) to ensure that the framework is designed so that data are accessible and in a format;
To conduct one or more pilot projects that utilize common monitoring elements of multiple regional labs and demonstrate a regional framework for building and sharing coastal observing capacities; and
To ensure that this southeastern regional framework is compatible with the national and international vision of global ocean and coastal observation systems.